Mass Transfer and Evolution Problems, Free Boundary Problems

DMS-9970577
ABSTRACT

M. Feldman will work on three main topics. (1) Study of Monge-Kantorovich
mass transfer problem in nonhomogeneous media, which include transport
on manifolds with obstacles, and in anisotropic and nonsmooth spaces.
Also, related evolution problems will be studied. Recently a progress was
made by many authors in studying mass transport in the Euclidean space.
Nonhomogeneous media is a natural next step. (2) Study of existence of
convex viscosity solutions of geometric evolution equations, including
nonlocal curvature motion, in the spatial dimensions three and higher.
Such geometric evolutions are related to Monge-Kantorovich mass transfer.
(3) Free boundary problems: existence and stability of solutions, and
regularity of free boundaries.

Methods of mass transfer theory were used recently in several applications
including mathematical models in economics, meteorology, fluid dynamics,
sandpiles growth and collapse, non-Newtonian fluids, plasticity. Free
boundaries and moving interfaces arise naturally in many models.
Mathematical analysis of such problems improves our understanding of
qualitative properties of models, and is a necessary ingredient in
developing of fast and reliable numerical algorithms. In addition,
mathematical study sometimes discovers unexpected connections between
different models (for example, partial differential equations and transport
problems), and such interplay is useful in applications.